collaborative research: theoretical support for mechanized proof assistants

In this project, Avigad and Friedman propose to develop a theoretical base
in mathematical logic to support the development of mechanized proof
assistants for mathematics. They propose to study the definitional structure
of mathematics, and characterize the ways that definitions are used in
practice; to study the methods of inference commonly used in elementary
reasoning in number theory, real analysis, and set theory, and to develop of
algorithms that can mirror these forms of inference; and to develop an
enriched theory of mathematical proof to characterize and classify the
various ``indirect'' methods that are used in mathematical reasoning. A
novel aspect of the proposal is the attention Avigad and Friedman will give
to actual data, i.e. specific formal developments. In particular, Avigad
will complete a mechanically verified proof of the prime number theorem, and
is developing a broad number theory library, using a proof system called
Isabelle; and Friedman has begun a fully formal development of set theory
using in a notational framework of his own devising, with an emphasis on
readability, for a broad audience.

This research is intended to contribute to the general goal of devising
better computer support for the development, manipulation, storage, and
communication of mathematical knowledge. In particular, formal mathematical
libraries and means of handling them are important to verify the behavior of
hardware and software systems, for example, and to support scientific
computing and cryptography. It is well understood that the development of
useable proof assistants will have to combine pure logical considerations
with pragmatic engineering concerns. However, in today's specialized
academic environments, the relevant communities have become largely
disjoint. Avigad and Friedman are committed to bridging the gap, by
developing powerful theory that is guided by, and designed to support, sound
practice.